Establishment of a Research Experience for Undergraduate Site

This is a Research Experiences for Undergraduates Site Award at North Carolina State University. The funds provide support for seventeen undergraduate students selected from candidates from sixty five potential institutions in the Southeastern United States. Participation consists of a summer session at North Carolina State University. Special emphasis is placed upon recruitment from under-represented groups such as females and minorities. Scholastic achievement is the primary requirement for participation in the program, and recommendation by a faculty member is a significant factor. The research under supervision of faculty members will involve topics in the areas of super- resolution optical spectroscopy, compound semiconductors, atomic collisions, x-ray absorption spectroscopy, supernova remnants, and condensed matter theory. The professors involved in this program have a strong record of interaction with undergraduate students in research. The program has had considerable success in the past four years, for example, more than 24 publications with undergraduate student co-authors, several regional awards for student papers, and one winner of the Apker Award by the American Institute of Physics for the outstanding undergraduate research project in the nation, plus an additional Apker finalist in 1991.